Well Posedness of Systems of Conservation Laws Near Solutions Containing Large Waves

The proposal will establish boundedness and integrability results for wave patterns arising from strictly hyperbolic systems of conservation laws. The methods apply to patterns of non-interacting shock and rarefaction waves generated as solutions of the one-dimensional Riemann and Cauchy problems without any restrictions on their amplitude.

As to the project's broader impacts, the PI is hoping to link the analytical results obtained to recent experimental data where the bounded variation instabilities of certain heavy gases have been discovered. These findings will have impact in the fields of astronomy and astrophysics.